Support of coring for Paleogene Earth Perturbations, U.S. Atlantic Coastal Plain

The geological record preserves evidence of how Earth's interconnected systems, including the biosphere, thermal regime, hydrological cycle, ocean chemistry, and sea level, have responded to large, rapid perturbations of the carbon cycle. The Paleocene-Eocene Thermal Maximum (PETM; 56 million years ago) was one of the most dramatic episodes in Earth's history. During this event, massive quantities of carbon were injected into the ocean-atmosphere system over a geologically brief interval, disrupting Earth's radiative balance and driving global temperatures 4–8°C higher, while fundamentally altering ocean chemistry and marine ecosystems. The US mid-Atlantic Coastal Plain (New Jersey, Delaware, and Virginia) preserves some of the thickest marine sediment records of the PETM providing an extraordinary window into the environmental and ecological changes. This project supports a large-scale scientific drilling program, conducted in partnership with the International Continental Scientific Drilling Program (ICDP), US Geological Survey (USGS), and the Delaware Geological Survey (DGS) to recover these sediment archives and make them available to US researchers. Beyond its scientific contributions, the project will provide extensive training opportunities for students and early-career researchers through direct participation in drilling operations and laboratory analysis, building the next generation of Earth scientists.

This project provides logistical support and core analysis for the Paleogene Earth Perturbations, US Atlantic Coastal Plain (PEP-US) drilling initiative, which targets expanded Paleocene-Eocene Thermal Maximum (PETM) and lower Eocene hyperthermal sections at ten sites (19 coreholes) across the US mid-Atlantic Coastal Plain. Coring costs are funded by ICDP, USGS, and DGS. The project will generate six foundational datasets for all drill sites: 1) continuous X-ray fluorescence geochemical core scanning; 2) continuous color core images; 3) bulk carbon isotope stratigraphy spanning the latest Paleocene to lower Eocene, delineating the PETM carbon isotope excursion (CIE) and subsequent hyperthermals; 4) lithologic descriptions and visual core descriptions; 5) grain size and coarse fraction mineralogical analyses; and 6) detrital zircon Uranium-Lead provenance analysis. These datasets will establish the stratigraphic framework and geologic context necessary for planned investigations by PEP-US collaborators. Key scientific objectives include constraining the rate, magnitude, and cause of the PETM CIE onset; evaluating biotic responses and ecological tipping points; assessing the role of the hydrological cycle and sediment provenance; reconstructing paleobathymetry and sea-level change; and testing the record of the Cretaceous-Paleogene boundary. Student and early-career researcher training will be integrated throughout the project through field participation, laboratory analysis, senior undergraduate projects, and graduate theses.